Student Travel Sponsorship for the 2012 International Green Computing Conference

This award provides travel grants to 10 US students, in the amount of $1,000 each, to attend the 2012 International Green Computing Conference (IGCC-12) which is to be held in San Jose, California in June 5-8, 2012. The travel grant recipients are expected to report on their learning experiences after the conference ends.

IGCC is the premier conference in the area of Green or Sustainable Computing. This conference aims to enable researchers and students to the study and practice the efficient use of computing resources, which in turn can impact a spectrum of economic, ecological, and social objectives.